The relationship between Gulf Stream path and atmospheric forcing

The Gulf Stream current is one of the most energetic features in the ocean. It is a region of vigorous air-sea interaction due to its co-location with the atmospheric storm track across the North Atlantic. Through heat and salt transport and air-sea interaction, the Gulf Stream strongly influences weather patterns, ocean conditions, and regional heat distribution. After separating from the coast, the path of the Gulf Stream exhibits north-south fluctuations on interannual-to-decadal timescales. This variability impacts the atmospheric circulation and is linked to the large-scale transport of tropical waters northward to the Nordic Seas as well as to ecosystem variability in the region. This project will investigate the variability of the Gulf Stream position with a focus on the relationship to atmospheric forcing. The results will lead to improved dynamical understanding which will aid with predictability of extreme weather, atmospheric blocking, and marine heat waves, and have implications for understanding the coastal ecosystem.

The North Atlantic Oscillation (NAO) is known to be the primary atmospheric driver of Gulf Stream variability. North-south fluctuations at interannual to decadal timescales are likely non-stationary. Preliminary results suggest wind-driven mechanisms associated with NAO forcing are responsible for the non-stationarity both in interannual and decadal timescales. This project will test the hypothesis that this variability is primarily driven by wind forcing and that non-stationarity is due to the leading modes of atmospheric variability.